CELDi/AFRL: Logistics Readiness and Sustainment

This proposal has been formulated to provide the United States Air Force (USAF) and specifically the Air Force Research Laboratory with long term, basic research through the Industry/University Cooperative Research Center for Engineering Logistics and Distribution at the University of Arkansas. In order to provide the agile combat material support necessary to sustain our warfighters and weapons systems in a crisis, new technologies for logistics need to be developed. The USAF business model for acquisition and sustainment highlights the need to add additional processes that develop the logistics support for the incorporation of new and existing weapons systems to sustain and protect our personnel as they go into harm's way. The goal of this research is to develop quantitative and scientific methods that will assist researchers and military logisticians in the analysis of the effectiveness of logistics technology that incorporates both a human-centered and a system based perspective.